REU Site: Extremal Graph Theory and Dynamical Systems at RIT

The REU Site in Extremal Graph Theory and Dynamical Systems at the Rochester Institute of Technology (RIT) will actively engage ten students in each of the summers of 2023, 2024, and 2025 in research experiences in the mathematical sciences. Research projects will be in the areas of graph theory, linear algebra, and dynamical systems, some of which are linked to mathematical biology. All students will work directly with RIT faculty for the entirety of the program and will receive mentoring in mathematical research practices, as well as in written and oral communication. Students will give presentations on their research findings at the end of each week. The program will have a heavy emphasis on networking with other mathematicians and will include a "Researchers in Residence" component, where experts from outside of RIT visit the program and collaborate with students and faculty. Results from research projects will be disseminated through publications in refereed journals, presentations at national and regional mathematical meetings, and at the students' home institutions. Students will be encouraged to pursue graduate studies and employment in the mathematical sciences. During the program, students will also participate in an Ethics in Science Workshop. The recruitment efforts will target students from universities, liberal arts colleges, and community colleges. An important element of the program will be the inclusion of women, minorities, and students from colleges without Ph.D. programs or which have limited research opportunities.

Research projects will impact the areas of discrete and applied mathematics. Applied projects will include modeling of cardiac arrhythmia and analysis of complex networks related to global climate systems. Projects with a theoretical focus will include problems from structural and extremal graph theory and linear algebra. The faculty and participants will utilize mathematical software packages including Mathematica, Matlab, Sage, and Nauty to help with computations and simulations.